A Thermal-Electrical Model for Microwave Processing of Polymer Matrix Composites

Microwaves can provide the controllable, volumetric heating necessary for producing superior, high-quality advanced composites. Effective utilization of microwaves will require accurate modeling capabilities as a basis for hardware and process design. The proposed research will produce the first model capable of determining temperature and electric fields during microwave processing of polymer matrix composites. This model will promote more effective use of microwave heating by providing a critical evaluation tool for microwave processing techniques. The proposed research will be divided into three parts: 1. predicting temperatures in polymer matrix composites during microwave processing; 2. evaluating microwave applicator designs for curing thick- section fiber-reinforced composites; 3. determining cure cycles and materials to achieve desired temperature profiles during microwave processing.